REU Site Award: Basic Research in Life Science

This award provides support to Louisiana State University to continue a Research Experiences for Undergraduates SITE. The primary activity will involve eight-week summer sessions of independent research in biological science. Program focus will be on comparative animal physiology during year one, plant physiology/biochemistry during year two, and molecular biology during year three. Each year a select group of ten students, of junior or senior standing, will be invited to participate in the program. Each student will be under the direct supervision of an LSU faculty member who will serve as the research mentor and be directly responsible for the student's progress. Faculty participants have been chosen on the basis of their experience working with undergraduates in the laboratory, suitability of research projects and general research productivity. Additional components of the program will be an intense pre-summer session library orientation and communication skills workshop. The program will also involve a weekly seminar series for all participants, including the faculty advisors and members of their research laboratories. The latter activities will be coordinated by the P.I.. Upon completion of the summer research program, each REU investigator will present his/her research results as an oral paper at an undergraduate research symposium, and a written paper in a form suitable for publication. Additional follow-up activities are planned to encourage REU investigators to present the results of their completed work to a scientific audience.